ISE Pathways: Earthquake!

This pathways project would refine and test a game based on the Kinect technology gaming tool to teach seismology concepts in an informal education setting and how they apply to phenomenon in other STEM fields. The game will be developed as a companion tool to the "Quake Catcher Network" a low-cost network of seismic sensors in schools, homes and offices world-wide and tie-ins with seismology programs such as the great California ShakeOut with a participant base of 8.6 million.

The project design would select three new learning modules, chosen by a group of scientists and educators, to incorporate into the game and evaluate player experience and knowledge gain. The activities will be conducted at a partner test site, an aquarium, frequented by area youth 8 - 12 years old. The focus of the effort is to add to the knowledge of how gaming can be used effectively in informal learning environments

The game places the player as a scientist, allowing the player to make decisions about seismic station deployment strategies following an earthquake, installing the sensors and monitoring incoming data. The game has levels of difficulty and players accrue points by acting swiftly and correctly. Learning goals for the project include making abstract math concepts understandable; involve participants in data collection and the process of scientific investigation, plus demonstrate how scientists and mathematicians use tools of their fields to address real-world issues.